Retrofit '94: A Conference Retrofit Construction at Stanford University

9402094 Teicholz The goals are: (1) address the problems, opportunities and technologies for retrofitting existing facilities, (2) examine how technology can be used to improve the entire process of redesign, reconstruction, startup, maintenance and operation of existing facilities, (3) identify relevant research topic.